Morse Index Bounds and Degeneration of Surfaces and Manifolds

Abstract for DMS - 0104453

The goal of this project is to describe all embedded minimal surfaces of
some fixed (but arbitrary) genus in a fixed (but arbitrary) closed
3-manifold. Such a study would include the description of these surfaces on
a fixed small scale. Various applications of such a description will also
be studied. In particular to the spherical space-form problem, the topology
of 3-manifolds with positive scalar curvature and various other problems in
the topology of 3-manifolds. Two other seperate projects will be
investigated. One is simple closed geodesics on surfaces and another is
degeneration of Kahler-Einstein manifolds.

Roughly speaking the goal of this proposal is to describe all smooth
soap-films. I soap-film is a surface spanning a boundary and which is
critical for area among all other surfaces with the same boundary. Besides
being a classical problem such a description would have many possible
applications in a wide varieties of fields. Spanning from topology to
mathematical biology.